Wind and Wave Patterns in the Earth's Ionosphere

This project will understand the sources of severe mid-latitude ionospheric weather during the coming solar minimum period. In particular, the PI will study the role of electrodynamics and plasma physics in controlling the character of traveling ionospheric disturbances. In addition, he will determine whether plasma physical processes can amplify small disturbances seeded in the ionosphere by atmospheric waves to the extent indicated by observation of the most violent mid-latitude events. The investigators will both coordinate the activities of a number of US scientists and carry out crucial investigations using the largest remote sensing radar, near Arecibo, Puerto Rico. Graduate students, undergraduate students, entry-level professionals, and senior scientists will all participate in this CEDAR project, and use the yearly meeting to coordinate experiments, as well as analyze the interpret the data.